A Planning Grant: Is Global Warming Just a Lot of Hot Air?

The planning project, "Is Global Warming Just a Lot of Hot Air?," is a consortium of twenty (20) research institutions, science centers and environmental organizations which will plan exhibits and outreach programs to address climate change and its affect on communities and ecosystems of northern New England. Research scientists will work with informal science educators to develop innovative approaches to presenting what is known about climate change.

The planning project will investigate strategies for helping the 1.85 million visitors in the region understand the issues in relation to the landscape and social environment. There is a wide-ranging group of advisors drawn from science, research, classrooms and informal learning centers to guide the 18-month planning project.